Collaborative Research: Caterpillars and Parasitoids in the Eastern Andes of Ecuador.

Plants, plant-feeding insects, and insect-feeding wasps and flies (known as parasitoids) are central components of terrestrial forest ecosystems. These plants and insects represent more than half of all described organisms in the world and comprise a larger proportion of undiscovered tropical species. This project consists of an intensive plant, caterpillar, and parasitoid insect inventory at the Yanayacu Biological Station (YBS) in the Ecuadorian Andes. The objectives are: 1) to sample and catalog the diverse community of caterpillars and associated parasitoid insects at YBS to discover new species and understand interactions between species; 2) to disseminate this information with a searchable database accessible to scientists and the public throughout the world; and 3) to discover natural history information, such as caterpillar diets, development times, and what insects feed upon specific herbivores and plants. Such information is used to test hypotheses about how diversity evolved and how it affects variables such as ecosystem stability, forest productivity, or ecosystem services.

The intellectual merit of this activity includes significant advances in insect classification by naming new species, developing identification guides, providing specimens with associated molecular data to experts, as well as providing a critical inventory that can be used in conservation efforts in the equatorial Andes (a global hot-spot of biodiversity). These data will also be used to address a variety of basic and applied questions, particularly those associated with climate change and biodiversity. The broader impacts of this project include direct involvement of multiple local field assistants, senior scientists, postdoctoral researchers, collaborating insect specialists, graduate students, and undergraduate students. Therefore the project strengthens international scientific dialogue and relationships. The project includes enhancements in science education and research experience programs for minorities.